Planning Grant: Connection One--Telecommunications Integration Circuits and Systems Center

This planning grant award is the first step toward the establishment of a National Science Foundation Industry/University Cooperative Research Center I/UCRC at the College of Engineering at Arizona State University (ASU). The focus of the proposed consortium is to develop a Telecommunication Circuits and System Center through leadership that offers the vision, focus and direction for the advancement of the next generation of telecommunication systems.

The "Connection One: Telecommunications Circuits and Systems Center" has established a foundation for ASU researchers and industry partners that are committed to the advancement of integrated circuits and systems for wireline and wireless communications. The focus of the Center will be to simplify communication by identifying new circuits and system technologies that will enable a "system on a chip" single communication device.